Interactive Prototyping of 2D and 3D User Interfaces

This project is to develop an environment for interactive prototyping of two-dimensional and three-dimensional user interfaces. The environment consists of an integrated set of tools that support the design, prototyping, reconfiguration, and testing of graphical user interfaces, without involving and traditional notion of "programming." The tools will allow a naive or sophisticated user to configure and generate a user interface by interactively specifying the 2D and 3D graphics, graphical events and various manipulations of pictures, and the user/system dialogue.